Analysis and Verification of Filtering Rules in Security Policies

This goal of this effort is to develop the next general of firewalls by using filtering rules and some intrusion detection techniques. Firewalls are a very important area in information security. The project will incorporate filtering rules in security policies. In particular specification of policies and filtering rules as well as algorithms for analyzing and verifying the filtering of the rules will be developed. The results will be used to detect intrusions as well as to develop the next generation of firewalls.